Elucidating the Precise Chemical Composition of a Pheremonal Signal and Determining Whether it is Discriminated by a Specific, Specialized Componant of the...

IBN-9723798 PI: Sorensen Pheromones are molecular compounds that are detected as odors, but produce effects like hormones in stimulating particular reproductive behavior and physiological changes. Some insect pheromones that act attract mates are well known, but we still do not have a case in any vertebrate species where we know the precise identity and behavioral correlates of a pheromone. This project continues to develop the goldfish as the first vertebrate model system to specifically address this issue, because the goldfish shows responses to a preovulatory pheromone with at least three steroidal components. Behavioral, and biochemical tests are used to identify all the goldfish pheromone components that are part of the natural mixture, the ability of the fish to distinguish among different mixtures, and whether the natural signal is species-specific. Electrophysiological recordings also will test whether the pheromonal signal in the olfactory system has a distinct spatial or temporal pattern. This model system will provide fundamental advances in our understanding the sensory mechanisms for distinct pheromone actions, and will have impact beyond sensory science to endocrinology, comparative physiology, and likely lead to applications in aquaculture.